2005 Polymers (East) Gordon Research Conference, June 19-24, 2005, South Hadley, MA

A proposal submitted to National Science Foundation to support the 2005 Polymers (East) Gordon Research Conference: From Precise Polymer Synthesis to Advanced Polymeric Materials; to be held at Mount Holyoke College, June 19-24, 2005

Chairman: Professor Kris Matyjaszewski, Carnegie Mellon University
Vice Chair: Professor Karen Wooley, Washington University in St. Louis

Recent advances in polymer synthesis open new avenues for the preparation of
advanced polymeric materials controlled at the nanoscopic level. The new well-defined
polymeric materials can find applications in a range of advanced technologies. From
smart surfaces, sensors, drug delivery systems, catalysts, agents for chemical warfare
detection and destruction, to biodegradable tissue replacements, polymeric materials are
the critical component and enabling technology for the successful implementation of
these applications. This conference will focus upon recent developments in the design
and precise macromolecular synthesis of polymeric materials, biodegradability,
supramolecular chemistry and polymer physics as well as potential applications in
biomedical areas, surface sciences and in optoelectronics. Such an exchange of
knowledge in these critical areas by world experts will provide new stimuli for future
developments and will encourage young scientists to focus on polymer science and
engineering.